Support of the 1985 Gordon Research Conference on Nonlinear Optics and Lasers to be held at Brewster Academy, Wolfeboro,New Hampshire, July 29-August 2, 1985

The 1985 Gordon Research Conference on Nonlinear Optics and Lasers is to be held at Brewster Academy, Wolfeboro, New Hampshire, July 29 - August 2, 1985. The purpose of this conference is to provide an informal forum for the presentation and discussion of new work on selected topics in nonlinear optics, quantum electronics, and lasers, and their applications to physics and chemistry. An informal atmosphere with a strong emphasis on discussion is intended to encourage the exchange of ideas in a manner not possible at regular meetings of professional societies. A total attendance of approximately 120 engineers and scientists from universities and industry is anticipated.